Computer Integrated Instruction in Civil Engineering at WPI:Workstation Network

Resources will be used to establish an undergraduate teaching classroom. This classroom will center around the UNIX based scientific workstations for the purpose of enhancing engineering analysis and design. The specific objectives center around the conversion of existing programs for use on the UNIX systems, incorporation of new programs which will soon be released for the UNIX system, and thirdly the development of new programs. It is planned to evaluate an integrated analysis and design project which runs throughout the student's sophomore, junior, and senior year and is interdisciplinary in nature. An example engineering project includes a bridge or water treatment plant and how the material taught in each of the specific engineering courses would relate to the ultimate planning analysis, design and construction of this project. In order to establish this plan, a computer classroom with the computational capabilities of networked scientific work stations, file servers, and peripherals is needed. Starting in the sophomore year simple analysis applications covered in the basic courses will be translated to specific project topics. In sequential courses such as soil mechanics, foundation design, steel design, concrete design, hydraulics, hydrology, transportation, etc. the concepts covered will be translated to the specific project. This project will be a coherent computer-based analysis and design experience for the students running through several courses.